Problems in Complex Analysis

The principal investigator plans to work on various problems in
the theory of several complex variables and complex dynamics. With
Professor Sibony, the principal investigator will work on a systematic
development of the theory of iterations of holomorphic maps. This
depends on the use of pluripotential theory to construct invariant
measures as well as a broad range of function theoretic tools from the
theory of several complex variables. One of the main problems in the
theory of dynamical systems is that the equations are too difficult
for rigorous study. Holomorphic maps have enough structure so that
many results can be proved rigorously thereby giving an idea of phenomena
that can occur also in more complicated systems. The principal
investigator also plans to work on several problems in the theory of
several complex variables. This includes generalizations of the
Bochner-Hartogs extension Theorem to more general manifolds and to
solutions of the Cauchy-Riemann equations in singular spaces.

The goals of this proposal are to study problems in complex analysis
and in dynamical systems using techniques of complex analysis. Complex
numbers were introduced to solve algebraic expressions that could not
be solved with real numbers. With time, complex numbers have proved to
be necessary to explain fundamental physical phenomena like electromagnetisms, vibrations in mechanical systems, etc. Complex analysis studies the changes of quantities that depend on complex numbers. Dynamical systems is the study of systems that change over time. Examples of dynamical
systems range from the weather to the study of populations. Dynamical
systems are in general very hard to model and to understand. The simplest
models involve using real algebraic expressions to represent the system.
Considering the algebraic expressions over the complex numbers allows
one to see and study the problems in a higher dimensional setting and
using more powerful tools. In this setting, a very intricate and
fascinating scenario appears. Computer generated pictures show the
geometry of this phenomenon: a very complicated fractal structure.
Proper understanding of this geometry will lead to a better understanding
of real dynamical systems.